Developing a Novel Technique for Generating a Tunable Homogeneous Spray and its Application to Spray Cooling Heat Transfer (REU Supplement)

Liquid sprays have wide industrial significance as a way of efficiently cooling hot surfaces. Examples are continuous casting, emergency core cooling of nuclear reactors, and cooling of electronic equipment. The cooling efficiency of sprays depends on such variables as droplet size, velocity, and population. The proposal sets forth a new concept for controlling these variables. The concept will be implemented during the research project. Once implemented, the sprays will be used to study the mechanisms of spray cooling.